RAPID - Response to the Increased Seismic Activity along the San Jacinto Fault Zone Following the 4 April 2010 Mw 7.2 El Major-Cucaph Earthquake

On Easter Sunday, 4 April 2010, the Mw 7.2 El Major-Cucapah earthquake occurred with rupture initiating in Baja California at the southern end of the Cucapah mountains, propagating to the northwest and terminating where the aftershocks concentrated just north of the California border. Since the Mw 7.2 El Major-Cucapah earthquake there has been a migration of seismicity to the north that has included the recent 7 July 2010, Mw 5.4 Collins Valley earthquake. This RAPID award will accelerate the instrument deployment for the existing NSF funded project (EAR-0908903) entitled: Collaborative Research: Structural Architecture and Evolutionary Plate-Boundary Processes along the San Jacinto Fault Zone. This is a joint project between USC, UCSD, San Diego State University, and UNAVCO. This RAPID project will use resources of UNAVCO to provide the most cost effective method for installation of new shallow borehole sensors. The funds are solely for the shallow borehole drilling, since USC is providing the borehole sensors and UCSD is providing the data acquisition system. The RAPID funding will allow for 7 installations.